Mathematical Sciences: Problems in Phase Transitions

This research project will examine continuous and discrete models of phase transition. Bifurcation theory will be a basic tool in the continuous case. In the discrete case, the discrete-fragmentation equations will be considered with conditions which allow for a breakdown of density conservation in finite time. Phase transitions are an important phenomena in both fluids and solids. This research will extend understanding of the dynamics of phase transitions.